Presidential Young Investigator Award: Topics in Theoretical Physics

One interesting area of research in theoretical physics is the theory of superstrings. Its main premise is simple: the nature's most fundamental constituents are not point-like particles, but tiny vibrating strings. If this theory is successful, it may provide a unified quantum mechanical theory of all the know types of matter and forces. The theory is so complex that we are still a long way from its detailed understanding, but there are many encouraging signs. In the coming years Dr. Klebanov is planning to continue his effort aimed at understanding high energy physics and the quantum theory of gravity.